Greater Boston Logic Conference, Cambridge, Massachusetts

9972531
Friedman
This award will provide partial support for speakers and others at
the 1999 Greater Boston Logic Conference, held at M.I.T., May 14-16, 1999.
These conferences normally occur on a biennial basis, alternating with the
UCLA logic meetings that occur in even-numbered years. They have provided
an opportunity for mathematical logicians from around the world to present
the most current results in the field to an appreciative audience of their
peers and have been held at M.I.T. every other year for more than a decade.
A prominent feature of these conferences has been the high level of
participation by students and young postdocs, including women and minorities,
and this is again the case for the current year. Attendance is estimated
at one hundred, primarily from the United States, with some representation
from Europe.
***